IMA New Directions Program: Visitors and Short Courses

Abstract

Award: DMS-0307274
Principal Investigator: Douglas N. Arnold

The Institute for Mathematics and its Applications (IMA) is
initiating a program to partner with established academic
mathematicians who seek to increase the impact of their research
and to take up research problems in areas of significant
application. The New Directions program consists of two major
activities: the New Directions Visiting Professorships, which
will support established academic mathematicians to visit the IMA
for a period of several months, immersing themselves in the
annual thematic program, learning new mathematics and
applications, connecting their research with important problems,
and establishing new contacts and collaborations; and the New
Directions Short Courses, two-week intensive courses for
mathematics faculty members that address active and developing
areas of application. The first short course in June 2003 is
devoted to Cellular Physiology.

The primary mission of the Institute for Mathematics and its
Applications (IMA) is to increase the impact of mathematics by
fostering interdisciplinary research, linking mathematics of the
highest caliber and important scientific and technological
problems from other disciplines and industry. This award to the
IMA helps support visitors who are established researchers in
mathematics and who seek to broaden their research into emerging
areas of application. Information about upcoming programs,
selection criteria for New Directions professorships and
workshops, and application forms are available on the World Wide
Web at http://www.ima.umn.edu/.